Cyclic and Polycyclic Organostrannanes

In this project ("Cyclic and Polycyclic Organostannanes") in the Organic Dynamics Program of the Chemistry Division, Professor Lawrence R. Sita in the Chemistry Department at Carneige Mellon University will study the bonding, physical, and structural properties of cyclic and polycyclic compounds of tin. Some of the results from this study will lead to new insights concerning the design of new materials for solid state applications. This study of "Cyclic and Polycyclic Organostannanes" will bridge the curent gap in knowledge concerning the structure, bonding, and physical properties of cyclic and polycyclic compounds of tin. The nature of bonding available to Group 14 elements within ring-strained systems, the development of new synthetic methodology which will facilitate the construction of a desired cyclic or polycyclic organostannane framework, the refinement of structure/bonding/physical property relationships for tin, and the development of new spectroscopic techniques such as Sn-119 NMR, electrochemistry, and electron spin resonance (ESR) for investigating the molecular and electronic structure of cyclic and polycyclic organostannanes are being studied